Role of Deformation on Melt Distribution: Implications for Focussing Melt to Mid-Ocean Ridges

The P.I. will conduct high pressure solidus-to-super solidus experiments on mantle peridotites in a Patterson-type apparatus in order to quantify the roles of deviatoric stress and finite strain in the formation of anisotropic melt distributions. A second goal will be to determine the conditions at which a transition from porous flow to localized flow occurs in response to melt fracturing vs, fluid dynamic instabilities. His ultimate objective is to obtain constraints on the mechanism of melt focussing at mid- oceanic ridges.